Postdoctoral Research Fellowship in Plant Biology

Dr. Dale is receiving a Plant Postdoctoral Fellowship to determine a new method for site specific recombination in plants at the Plant Gene Expression Center, Albany, Ca.